Molecular Evolution and Phylogenetics of Drosophila

Powell 9318836 Flies of the genus Drosophila play a crucial role in all biological research from the most basic molecular biology through to ecology. On the order of 2400 species of this genus are known. While Drosophila have been intensively studied for all kinds of biological processes such as genetics, development and some aspects of evolution, little attention has been paid to the phylogenetic relationships of the many species. A good reason for this is that these small flies have relatively few good characters with which such a large group could easily be placed into phylogenies using traditional methods. Recent advances in molecular biology now make it reasonably routine to collect DNA sequence data on many species of Drosophila. The present proposal is to gather DNA sequence data for a number of the most studied species of the genus in order to clarify their phylogenetic relationships. Once phylogenies are available, one can map onto them various characters, e.g. behaviors, morphologies, etc, to gain an insight into the evolution of these characters. But to do so, one needs reliable relationships determined by an independent data set, i.e. DNA sequences. In addition, because Drosophila is so well studied from so many viewpoints, these studies will contribute to our understanding of basic molecular evolution mechanisms such as the relative rates of change of different types of DNA, the pattern of change in repeated DNA's compared to unique sequences, etc. So in addition to shedding light on the phylogenetic relationships in the genus, we will gain insight into basic processes.